Quantum Gravity and Relativistic Astrophysics

The research described spans two classes of problems which involve different methods, but which are unified by the common roots in general relativity, Einstein's theory of gravitation. One set of problems is centered on astrophysical facets of general relativity, especially black holes and gravitational waves, and much of it is motivated by the problem of determining the gravitational wave signal produced by black hole interactions. The approach will involve numerical and symbolic computation, but will not directly involve solving the full set of Einstein equations on supercomputers. Rather, analytic and approximation methods will be used to find and understand gravitational wave outputs. Another set of problems aims at understanding the canonical quantization of Einstein's theory. Black holes are again at the center of attention, now at the submicroscopic scale. Semiclassically, they evaporate by Hawking radiation. To go beyond the semiclassical description, midisuperspace quantization will be applied to a number of spherically symmetric models. It is expected that the reconstruction of privileged spacetime coordinates from the canonical data will simplify the quantum theory both at the conceptual and technical levels. A study of these models should clarify such questions as what happens to the horizon and curvature singularities in quantum theory.